SENSORS: Collaborative Research: Self-configuring In Situ Wireless Sensor Networks For Prescribed Fire Management

Abstract for "SENSORS: Collaborative Research: Self-configuring In Situ
Wireless Sensor Networks For Prescribed Fire Management":

Wireless sensor networks offer exciting new technology with the
potential to revolutionize the critical process of fire management in
forests and public lands. At present, wildland fire management is
limited by the coarse granularity of the collected weather data
received through the portable belt weather kits worn by firefighters
or through the sparsely scattered remote weather stations placed in
forests. Since weather is the most critical factor affecting fire
behavior and firefighter safety, then the deployment of fire weather
sensor networks offers the prospect of fine-granularity weather data
that can vastly improve decision-making and safety in the fire management
process.

This project focuses on solving the research challenges in designing,
deploying, and testing a self-configuring wireless fire weather sensor
network to support fire management in prescribed fire burns.
Reliability, energy efficiency, and connectivity in rugged terrain and
tree cover pose key challenges. Human interface requirements like
real-time access, localization, and dynamic reprogramming of sensor
nodes add complexity to the problem. Specific research objectives
include: design and evaluation of self-configuring wireless systems
that are low maintenance, adaptive and automatically self-organizing
in terms of their network routing; analysis of fault tolerant
techniques like multipath routing to facilitate persistent firefighter
access to in situ sensor readings in rugged terrain; testing of
sustained low power operation through transmit power control,
time-synchronized duty cycles, and energy harvesting techniques such
as solar power; and development of software that supports remote
dynamic reprogramming of in situ sensor nodes. The deployment and
testing sequence progresses from a series of laboratory and on-campus
experiments to a prescribed fire at a partner experimental forest.

The goals of this research project in terms of broader societal impact
include the improvement of decision-making and safety in the
management of prescribed wildland fires, the development of tools to
enable real-time fire monitoring in rugged terrain, the generation of
scientific datasets to improve forecasting of wildland fire behavior,
the integration of research results into the curricula of university
courses, and increased public understanding of fire behavior in
wildlands through the release of research results via the Web. This
research effort arises from a partnership between the University of
Colorado at Boulder and the University of Montana. The group's
collective expertise in computer science, electrical engineering,
forestry, and fire intelligence promotes the spirit of collaborative,
multidisciplinary research in a real-world setting, enhancing the
creativity of students and faculty alike.